Distributed Authentication and Authorization: Models, Calculi, Methods

The access control model plays a central role in most of computer
security. It is pervasive, and provides a basis for secrecy and
integrity security policies. Authentication and authorization are two
of the fundamental components of this model. In a distributed system,
authentication and authorization are harder, in particular because of
the heterogeneity and the autonomy of subsystems.

This project addresses problems and opportunities related to access
control in distributed systems. It aims to further the design and
analysis of models and mechanisms for authentication and
authorization. In particular, it investigates the design and analysis
of protocols for authentication and related purposes. It also
investigates fine-grained authorization in extensible software
systems. Some parts of this project are rather informal; others
exploit ideas from programming-language research and rely on the
development of formal calculi.